New Silicon Chemistry for Organic Synthesis

The focus of this research is the application to organic synthesis of organosilicon compounds which utilize more than one of the bonds to silicon, especially organosilicon compounds with a protected internal nucleophile. The scope, as well as the potential use of rearrangement and cleavage reactions induced by a gamma-oxidopropyl group on silicon will be investigated, especially possible applications to asymmetric synthesis. The effect of silicon groups, compared to hydrogen, on the reactivity of ring opening reactions of expoxides will be studied. With this award, the Synthetic Organic Program is supporting the research of Dr. Paul F. and Anne M. Hudrlick of the Department of Chemistry at Howard University. The Hudrliks will focus their work on the utility of organosilicon compounds as intermediates in organic synthesis to develop new reactions of general applicability.